Mathematical Sciences: Mathematical Tools for Molecular Sequence Analysis

This project involves a group of researchers working on mathematical, statistical and computational methods for analysis of DNA, RNA, and protein sequences. Modern technology has made it possible to rapidly sequence DNA and RNA. The related mathematical work finds significant matchings, patterns and alignments in these sequences. Statistical techniques are used to narrow the range of possible genomic maps that are consistent with the biologically correct one. The group will find distributional results on the scores of best matching segments between random sequences under various notions of similarity. Stochastic annealing will be used in the restriction mapping of smaller regions of DNA as well as large-scale genomic mapping projects. The problems related to molecular evolution will reconstruct evolutionary histories from sequence data.